Analytical Studies of Melt Motions during Crystal Growth with a Magnetic Field

Crystal growth is a central technology for microelectronics. There is strong likelihood that the research will lead to major enhancements in crystal growth, especially with regard to control of solute deposition. A possible end result is the tailoring of impurity content of silicon crystals.